Presidential Young Investigator Award

Animal cell culture is attractive for production of valuable proteins (e.g.,growth factors), and also provides a model system for studying responses of normal and diseased tissues. The Principal Investigator (PI) is examining the regulation of cell growth, metabolism, and gene expression in response to selected environmental (pH, temperature, etc.) changes in well-characterized and controlled reactors. Continuous suspension culture is used to facilitate analysis of step and pulse changes employed to probe cellular physiology mechanisms, and allows for adaption of cells to inhibitory conditions. The PI's research goals for the next five years are summarized as follows: - Characterize increased antibody production by hybridomas exposed to environmental stress (e.g. low pH). - Evaluate the use of heat shock and/or glucose-regulated protein promoters to increase productivity of recombinant animal cells. - Characterize cellular adaptations to changes in oxygen partial pressure. - Develop a well-characterized reactor system for mixed cell populations.